Electronic Holography with Incoherent Light for Imaging Through Scattering Media

9311409 Leith We propose several methods for imaging through highly scattering material, all based on the use of light that is either spatially or temporally incoherent, or both. We propose using for this undertaking a sophisticated imaging system, comprising a cooled CCD camera, a computer, and extensive software we develped. In addition, the equipment and the proposed techniques are to be developed for a range of other imaging areas, including optical sectioning, phase contrast imaging, and a multiple-wavelenght depth contrast imaging, and a multiple-wavelength depth contouring. ***